Kinetics and Mechanisms of Interfacial Organic Reactions

This grant in Organic and Macromolecular Chemistry provides support for the research of Dr. John Garst, University of Georgia. The work focuses on organic reactions which occur at the interface between a solid reactant and one in the solution phase. Many extremely important organic rections take place in such a heterogeneous environment and an understanding of the various relationships between the phases is an essential ingredient in a thorough understanding of many catalytic processes. Studies of interfacial processes cannot use standard kinetic methods which were devised for studies of reactions in homogeneous solutions. Concentration inhomogeneities, diffusion, adsorption, surface irregularities, and other factors complicate the kinetics of interfacial reactions. A treatment of the nonlinear diffusion-reaction kinetics of a classic interfacial organic reaction, Grignard reagent formation from magnesium and an alkyl halide in an ether, will be studied. In this mechanism, radicals formed at the liquid-solid interface diffuse into solution. There they undergo first- and second-order reactions (e.g., isomeration, reaction with solvent, coupling, and disproportionation) in competition with their return to the interface where the Grignard reagent can form. This analysis has been tested with encouraging success against data from the literature, but further testing and development of both the reaction mechanism and the methods of kinetic analysis will be carried out. A general methodology that will make it possible to apply isomerizing radical "clocks" quantitatively to appropriate interfacial reactions is a possible outcome of this research. This work will form the basis for similar studies of many other interfacial reactions.